Workshop: The Stability of Coherent Structures and Patterns

The workshop on "The stability of coherent structures and patterns" (http://depts.washington.edu/bdecon/workshop2012/) will educate
graduate students on important aspects of stability. It will take place at the University of Washington in Seattle, June 11-12, 2012.
The workshop will consist of three different mini-courses, taught by three noted experts in the field of stability. Margaret Beck(Heriott-Watt and Boston University) will present introductory lectures providing a common background to the audience members. Bjorn Sandstede (Brown University) will demonstrate the use of the softwareAUTO for stability applications, and Walter Strauss (Brown University) will examine different aspects of nonlinear and orbital stability.

Stability plays an essential role in many branches of science and engineering, including several aspects of fluid mechanics, high-speed
transmission of information, and feasibility of MHD fusion devices. The objective of the workshop is to give an overview of current
state-of-the-art methods for examining stability, as well as to present some widely applicable new techniques. The format will consist
of three invited speakers giving a series of lectures at a level aimed at graduate students but useful for researchers from a variety of
disciplines, such as mathematics, engineering, biology, etc.